Sixteen Bit Digital Systems Laboratory

This project supports the expansion of this institution's digital design laboratory to include sixteen-bit computer architecture. Using this laboratory undergraduates write programs in high-level languages, in assembly and machine language, they experiment with serial and parallel communications and interrupts, and, they synthesize and monitor control programs for motors, robots and other devices. The equipment that supports this laboratory includes: in-circuit emulators, INTEL SDK-86 computers, PC-based development systems and associated software. This award is being matched by an equal sum from the grantee.